Presidential Young Investigator Award: Adaptive Vector Quantization

Vector quantization systems that adaptively design codebooks during operation will be studied. A codebook is a set of stored prototype vectors. The idea to be explored is that the prototype vectors arrange themselves in some configuration that is optimal for the statistics of the input. It is expected that this research will demonstrate the applicability of adaptive vector quantization to speech and image processing as well as contribute to the general theory of adaptive systems.